SPHICE: A Strongly Polarized Hydrogen and Deuterium Ice Target for Measurement of the Spin Structure of the Nucloen

A new type of polarized target based on frozen hydrogen- deuterium molecules will be developed. The techniques will be adapted from the technology developed for producing pellets used in laser-driven fusion studies. With nuclear spins aligned, these targets will be used to explore the spin-dependent structure of the nucleon. Specifically, a theoretical sum rule (the Drell-Hearn-Gerasimov sum rule) will be tested which relates, on one side, the difference in the integrated total photo-absorption cross-section between measurements with photon spin aligned and opposed to the nuclear spin direction, to, on the other side, the anomalous magnetic moment of the nucleon. This is a very high priority experiment within nuclear physics which relates to our fundamental understanding of the structure of the nucleon. The new technology will permit an order of magnitude increase in precision of such measurements. Education is also integral to this activity. The state-of-the-art technology developed will involve many skills including low temperature techniques. Graduate students and postdoctoral fellows will be involved in all phases of the work. The training will be useful in many other settings.